Fast and Numerically Accurate Algorithms for Matrices with Displacement Structure

Numerous applications in sciences and engineering, as well as in computational, applied and pure mathematics give rise to problems involving matrices with Toeplitz, Hankel, Toeplitz-plus-Hankel, Vandermonde structures, controllability, observability, Cauchy, Loewner, Pick, Schur-Cohn, Routh-Hurwitz matrices, Bezoutians, along with many other patterns of structure. standard mathematical software tools (e.g., MATLAB, MathCad, Maple V, NAG library, LAPACK), are based on standard (structure-ignoring) methods, and therefore their use is often not appropriate for obtaining a satisfactory solution. Here are two major reasons. First, ignoring the structure artificially squares the size of the data, which requires unnecessary storage and an extremely large amount of CPU time. Secondly, many structured matrices, e.g. Hankel, Pick, Hilbert, Vandermonde, are extremely ill- conditioned, which means that all available standard methods often fail to produce even one correct digit in the computed solution. The theme of this project is the study of several theoretical and computational problems related to Cauchy and Cauchy-like matrices, which arise in many applied areas, including signal processing, system Theory H-infinity control. Use of the concept of displacement structure suggests that algorithms for Cauchy-like matrices can be used to design efficient practical algorithms for many other important kinds of structured matrices, such as Toeplitz, Hankel, Toeplitz-plus- Hankel, Vandermonde, Chebyshev-Vandermonde matrices, etc. In fact, all these matrices can be transformed into Cauchy-like matrices just by applying a few fast Fourier, cosine of sine transforms. It is planned to extend the results to develop fast and numerically accurate algorithms for new classes of structured matrices. ***